Fourth International Conference on Seismic Zonation

The Earthquake Engineering Research Institute is planning and organizing the Fourth International Conference on Seismic Zonation (41CSZ) for Safer Construction and Reduction of Life and Property Losses from Future Earthquakes. This conference will provide a state-of-the-art assessment of the advances of nearly a decade in earth sciences, engineering, urban planning, social sciences and public policy to reduce earthquake hazards at local, regional and national scales. This award provides partial support for the conference. The conference is the fourth in a series of conferences previously supported by the National Science Foundation. This conference will emphasize results of the last decade pertinent to earthquake disaster mitigation at sites throughout the world. The conference will provide a multi-disciplinary forum for assimilation and dissemination of information in support of the U.S. and International Decades for Natural Disaster Reduction(IDNDR). Dr. Frank Press, President of the United States National Academy of Science, will serve as the Honorary Chairman.